Workshop on Factors Limiting Progress in Blood Derived Pharmaceutical Development to be held September 11-13, 1987 at Lake Tahoe, California

Narrative: The recent emphasis on RDNA Technology has completely overshadowed efforts to recover naturally synthesized proteins that are present in trace amounts in blood plasma and are presently being discarded. This proposal intends to bring together experts from industry and academia to field important questions regarding the recovery of trace proteins via plasma fractionation. It is intended to assemble a complete list of protein candidates that have high potential for medical use. Also, to discuss the economics for recovery and whether or not RDNA Technology would be better suited for their manufacture. A final report will summarize the workshop and hopefully point the directions for funding basic and applied research in the field of plasma fractionation.